Ion Spectroscopy

The mean lifetimes of metastable, low energy multi-charged ions are measured using trapping techniques. The ions are obtained from a cyclotron source and the intensity of decay photons measured against ion storage times. Spectroscopic measurements of forbidden as well as electric dipole allowed transitions will be carried out using the method of collinear laser-ion beam spectroscopy. Hyperfine quenching will be studied using different isotopes of the same element. The data will be compared with recent theoretical calculations using many-body perturbations theory and multi-configuration Dirac-Fock theory.